Zeolitic Solid Acid Catalysts for the Alkylation of Isoparaffins with Olefins

Through the process of alkylation, lighter isoparaffins can be combined with small olefins to produce heavier, higher octane gasoline components. This alkylation of light isoparaffins, typically isobutane, with olefins, typically butenes or propylene, to produce high octane gasoline components, is an important process in refinery operation. It is currently carried out with either sulfuric acid or hydrogen fluoride as the catalyst, the choice depending on specific conditions and requirement. Environmental and safety pressures are forcing refiners to replace corrosive, toxic or hazardous materials with more benign and environmentally acceptable materials. The sulfuric acid process produces a hazardous sludge which needs to be disposed of. The explosion hazard with resulting toxic vapor cloud makes the HF process undesirable. New catalytic routes for alkylation utilizing solid acid catalysts are therefore being developed. While various zeolites have been studied as potential catalysts for the reaction of isobutane with butenes (or propylene), no viable commercial process has yet emerged primarily because of the unacceptably rapid rate of catalyst deactivation through coking. The PIs will synthesize and modify a number of potentially viable zeolite catalysts with the properties of high reactivities and low coking rates, and will carry out a study of the reaction kinetics and coking characteristics. They will then select the most promising catalyst, and perform a detailed reactor design analysis in order to identify the most desirable process configuration.